Digital Interference Holography: Development of a New Tomographic Microscopy Instrument

A grant has been awarded to Dr. Myung Kim at the University of South Florida to further develop a novel instrument for microscopic optical sectioning and tomographic imaging. The instrument is based on the recently introduced principle of wavelength scanning digital interference holography (DIH). The proposed three-year research program aims to: (1) develop a prototype instrument with key parameters consistent with practical microscopic imaging applications; (2) build up an image gallery for the purpose of applying the imaging methods and the instrument to a wide range of specimens; and (3) develop relevant biomedical applications and new techniques. One of the important long-term goals is to develop a compact, versatile, and economical imaging system, which will help further widen the range of applications. With full development of its capabilities, digital interference holography has the potential to impact the general field of optical microscopy and tomography by providing a simple and versatile mode of acquiring and manipulating three-dimensional digital model of microscopic objects.